Academy for Professional Development Design in Science and Mathematics

The design project will develop support for the MSPs to provide high quality professional development and to measure the impact of their activities on teacher and student learning. The project will use an "Academy" model and a variety of goals including increasing teachers' content and pedagogical content knowledge, building a professional community and identifying approaches for sustained teacher learning will be pursued. A variety of approaches will be used including the use of case studies, videos, electronic learning, and analysis of student work. Proposers will also develop evaluation and assessment tools that the MSPs can use to measure changes in teacher practice and student learning.